Travel Support for Students, Post-Docs, and Young Faculty to Attend the "Organic Conjugated Materials" Symposium; 2006 Spring MRS Meeting; April 17-21, 2006; San Francisco, CA

This proposal supports travel awards for graduate students, post-docs, and young faculty
to attend the "Organic Conjugated Materials" Symposium to be held at the 2006 Spring
Materials Research Society Meeting. Given the current status of the field of organic
electronics, this symposium is timely, and will be of great interest to the general
materials community. Specifically, we envision a high-impact, cross-discipline, and
comprehensive symposium on organic conjugated materials -- the electrically-active
component of organic electronics -- with emphasis on the chemistry, physics, the
processing-structure-property relationships, as well as device fabrication and
characterization of organic molecular materials and polymers. Nine half-day oral sessions
and two evening poster sessions are being planned; 25 speakers have already accepted our
invitation to speak at the symposium. We expect to receive >250 abstracts in response to
the call-for-papers, and intend to select approximately 60 oral and 130 poster
presentations from these abstracts.
Funding from the NSF will allow us to provide ten travel awards at $500 each to support
graduate student and young faculty travel to the symposium. Priority will be given to
graduate students who are attending their first national meeting. Four travel awards will
be reserved specifically for young faculty who will be giving oral presentations at the
symposium.